Analytical-Experimental Approach to Verified Cohesive Zone Fracture Models in Engineering Applications

Proposal: CMS-9820912
PI: S. Saigal
Carnegie Mellon University

Title: Analytical-Experimental Approach to Verified Cohesive Zone
Fracture Models in Engineering Applications

Abstract: The chipping of coatings is studied using the cohesive
zonebased cohesive finite elements formulation. An integrated
analytical/experimental/numerical approach is followed. The cohesive
zone models are postulated to include irreversibility, rate-dependence,
and the effect of environmental factors. These postulations are both
guided by and validated by a set of experiments designed to highlight
various phenomenon occurring in the fracture of materials systems. The
developments are applied to the industrial application of chipping of
paint systems. For this application, multiple, interacting cracks
propagating along unknown trajectories need to be accounted for. The
cohesive finite elements approach provides a natural vehicle for such
cracks. Additional applications of cohesive elements include layered
constructions found in numerous engineering applications such as
composites, laminated sheets, coated metal, and microelectronic
devices. The proposed research is carried out in close cooperation with
the DuPont Company. The experiments for validation as well as for the
industrial application are carried out at DuPont. The cohesive models
are developed under the guidance of DuPont researchers to ensure that
these elements have full industry validity. The project serves as a
unique training mechanism for graduate students, introducing them to
university-industry interactions as well as to the effectiveness of
combined analytical/numerical/experimental approaches in solving
real-world problems.